The Development and Application of an Advanced Infrared Imaging System for Ground-Based Astronomy

This award provides funds for the development and exploitation of a state-of-the art infrared camera system for the wavelength interval. The new UCLA infrared camera will be based largely on the well-established series of IRCAMs developed for the 3.8m United Kingdom Infrared Telescope by McLean during the period 1984-1989, but it will be more sensitive than its predecessors. The improved design will allow for two wavelength channels, making it possible to image in two colors simultaneously and to optimize independently the low background region from 1-2 um and the higher background region from 2-5 um. Initially, the best pixel detectors available will be selected by comparing several different devices but the camera design will permit an upgrade to even larger detector formats later. A special feature of the new infrared camera will be a low-background cryogenic coronagraph mode which may be used in conjunction with an imaging polarimeter mode. The camera will also have a grism and be compatible with several telescopes. The new instrument will enable the co- investigators and students at UCLA, and collaborators elsewhere to pursue a challenging observational program. The key topics of the science program are: an extensive search at several infrared wavelengths for very low mass stars and sub-stellar objects (brown dwarfs) or possibly large planets; ultra-deep, multi- wavelength searches for protogalaxies and galaxy phenomena at high redshifts; infrared coronagraphic polarimetry with high angular resolution of dusty star formation regions and the disks that form around both young stellar objects and evolved stars; a survey of the occurrence of carbon-rich dust particles around Wolf-Rayet stars; cosmic distance scales using infrared light curves of variable stars; studies of dust-embedded active galactic nuclei.